Conference: Workshop/Exploring National Infrastructure for Public Access Usage and Impact Reporting

This targeted convening of experts on open science and public access will bring together specific leading cyberinfrastructure experts to: a) explore approaches to producing cross-platform public and open impact analytics at scale, b) discuss open infrastructure opportunities to improve the FAIRness of usage data, and c) identify needed steps to scaffold America’s national infrastructure for scholarly output impact reporting in light of the Nelson memo and the European Open Science Cloud Core and Interoperability Framework. Workshop findings will be documented in a report that will be distributed through public repositories.